System Level Design of Embedded Systems

A. Project Summary

The objective of this research is to develop and demonstrate
capabilities for analyzing complex interactions between heterogeneous
embedded systems specification domains. Three research activities are
being undertaken: (i) development of domain models for important
embedded systems requirements domains; (ii) development of semantics
for combining heterogeneous embedded systems specifications; and (iii)
development of techniques for predictive analysis of composed
specifications. The results of this research are being evaluated
using problems from the Ambient Computing Environments (ACE) research
center at The University of Kansas / ITTC.

The facet-based approach being investigated involves modeling and
integrating heterogeneous specifications using domain specific
semantic systems. Each system model, or facet, is defined by
extending a domain. A domain provides a vocabulary and model of
computation for describing a system from one perspective. Facets use
domains as modeling semantics and are composed to describe components
and systems. Specifically, individual models are composed to define:
(i) multiple aspects of the same component; and (ii) heterogeneous,
multi-component systems. Projection functions and morphisms support
specification transformation and composition using category and
institution theoretic semantics. Special projection functions, called
interactions, model how and when models from one domain interact with
models from another. Interactions support integrated component
analysis and modeling communication between heterogeneous components.

Developing domain models, domain interaction models, and prototype
analysis tools demonstrates the effectiveness of the facet-based
approach for modeling embedded systems. The first and second research
tasks encompass the development of domain and domain interaction
models for defining embedded components. Both functional and
performance constraint models are being supported. Domain models are
being developed to represent basic models of computation and
vocabularies for specification. Interaction models consisting of
projection functions and specification morphisms are being defined to
move information between domains. The third research task is the
development of software systems for analyzing specifications. Two
complimentary approaches are being explored: (i) formal analysis; and
(ii) simulation. Formal analysis is achieved by mapping domain
definitions to existing formal analysis environments. Specification
simulation is achieved by mapping domain definitions to communicating,
heterogeneous simulation environments.

Challenge problems from the NSF and DARPA sponsored Ambient Computing
Environments (ACE) research infrastructure at ITTC are being used to
evaluate ongoing research. ACE provides an environment where
computing moves seamlessly with individuals within a physical
environment. ACE is implemented as a collection of highly mobile,
heterogeneous embedded systems that perform tasks including personal
data management, control of robotic devices, and various sensor
related tasks The results of this research have widespread impact on
the research and industrial communities. The Rosetta systems level
specification language is being used for domain models, interaction
definitions and system specifications for embedded systems. Rosetta
is being standardized by the Accellera CAD standards organization as a
next-generation systems level design language. Successful results
from this research activity are being disseminated as a part of the
base Rosetta domain system and are being integrated into the
collection of standard Rosetta domain models.